Molecular Analysis of Meiotic Recombination and Genomic Organization in the Bronze Region of Maize

Homologous meiotic recombination is an important process for sexually
reproducing organisms: it creates new genotypes by shuffling chromosomal
segments that otherwise would be inherited as a unit and promotes fertility by
ensuring that chromosomes segregate properly at meiosis. For close to a century,
geneticists have been using recombination as a tool to construct genetic maps,
which now find practical applications ranging from risk prediction for inherited
deleterious alleles to marker-assisted selection of desirable genotypes in
agriculture and map-based cloning of valuable genes in plants and animals. Yet,
in spite of its importance, our knowledge of the process of homologous meiotic
recombination in higher plants is rudimentary compared to other organisms, like
yeast. This project will increase our understanding of this basic biological
process in maize, a plant that is both an excellent model organism
for studies of recombination, and an economically important crop in American agriculture and industry.
The genetic system being used in the project is the bz locus, which affects seed
pigmentation and is uniquely advantageous for studies of recombination. This
project will continue the analysis of meiotic recombination in maize by combining the power of the genetics of the bz region with that of modern molecular tools. It is greatly influenced by the recent finding that the organization of genes and retrotransposons in the bz genomic region is polymorphic in different maize lines. There are five specific objectives of the project:
1. To analyze conversion tract lengths within the bz gene island in heterozygotes
lacking heterologies and extend the analysis to adjacent retrotransposon blocks.
2. To determine if the apparent conversion polarity at bz, detected with small
insertion mutations at the 5' and 3' ends of the gene, but not with more centrally
located point mutations, is due to the nature or the position of the mutations.
3. To test whether the presence of a highly methylated retrotransposon block
affects recombination in adjacent genes.
4. To determine if all recombination junctions in an interval made up of genes
and retrotransposons fall in genes.
5. To test if recombination between two sites in the genome separated by a
different number of genes in different lines is a function of the number of
common genes in the intervening segment.